IUCRC Self-Sufficient Partnership for Research

This supplement provides funds for the first and second year of a three-year continuing award for a "Self-Sufficient Partnership for Research" Program at Northwestern University's Industry/University Cooperative Research Center for Engineering Tribology. The Center has met all the requirements for this program. The Program Manager recommends Northwestern University be awarded $55,000 for the first and second year of a three-year continuing award.